REU Site: Summer Intern Program in the Geosciences

Site grant support is requested for a Research Experience for Undergraduates (REU) program for the next three years at the Geophyical Institute. This program will give research opportunities to undergraduates majoring in physics and closely related disciplines. The program objective is to acquaint undergraduates with life and wwork at a research institute. This is done by providing summer educational work in which undergraduates become interns participating in the research activities of the Geophysical Institute. Research topics available in this program concentrate on space physics, aeronomy and global change (atmospheric science), but also include, ice and solid Earth topics within the Geophysical Institute, and solid state physics and laser physics at the Physics Department. The aim is to encourage \the undergraduates to continue their education in graduate school and become research scientists. In this program, the interns are assigned to conduct research with principal investigators who direct their work and serve as mentors through their internship. There is a common program of weekly lectures and field trips designed to expose interns to fields of research beyond the scope of their own projects. Through their close relationship with their mentors, contacts with graduate students, attending seminars, lectures and thesis defenses, and participating in field trips, the interns gain a first hand perspective on life and work as a research scientist.